Presidential Faculty Fellow - Optical Spectroscopy in Bioengineering

This Presidential Faculty Fellow award will support studies to extract information from fluorescence and reflectance spectra of multi-component, scattering samples. Models of fluorescence will be developed and new methods to record fluorescence spectra and spectroscopic images will be investigated. This research has the potential to provide sensitive information about the chemical composition of tissue in a non-invasive way. This award also will support the teaching activities of the investigator. The activities include teaching an undergraduate physics course and developing demonstrations to illustrate the principles being taught. At the graduate level, the investigator will expand two courses in optics and continue to promote faculty involvement in a graduate research seminar.